Group Travel Award to the 6th Valencia International Meeting on Bayesian Statistics to be held in Ibiza, Spain on June 6-10, 1998

PI: James O. Berger Proposal Number: DMS 9714876 Project: Group Travel Award to the 6th Valencia International Meeting on Bayesian Statistics Abstract: The Sixth International Valencia Meeting on Bayesian Statistics will be held from May 30 - June 4, 1998, in Las Fuentes, Spain. This series of international Valencia meetings has long been the major venue for presentation and dissemination of research on Bayesian statistical methodology and its applications. The Bayesian approach to statistics has experienced astonishing growth in recent years, driven in large part by its ability to solve difficult applied statistical problems in science, engineering, and society in general. This group travel award is in support of expenses of participants from the United States. Participation in this meeting is crucial for researchers, especially new researchers, as the pace and breadth of developments in the area is making it increasingly difficult to monitor the field. By attending the meeting, researchers will be able to acquire the latest Bayesian techniques, and will have ample opportunity to obtain feedback on their own work. A large portion of the grant will go towards expenses of graduate students, new researchers, and members of underrepresented groups. In addition, special activities for students and new researchers will be instituted, in part to initiate international interactions and collaborations.